A Proposal to Perform Core and Non-core Measurements of Sediment Composition and Burial Rate to Evaluate the Response of These Parameters to Climate Change of Time Scale

The US Joint Global Ocean Flux Study (US JGOFS) seeks "to understand the processes governing the production and fate of biogenic material in the sea well enough to predict their influences on, and responses to global scale perturbations." The program proposes to do this by "identifying and quantifying the physical, chemical and biological processes controlling biogeochemical cycling in the ocean, and their interaction with the global atmosphere." The implicit assumption of this strategy for achieving a predictive capability is that the process and interactions quantified today respond linearly to global scale perturbations and that knowledge of the present biogeochemical system dynamics will, therefore, allow one to predict response to global perturbations with accuracy. This is a fundamental assumption and is the keystone of the JGOFS strategy for predictive capability. The scientific justification for this assumption has never been stated and is the purpose of this research.